Student Travel Support for the Doctoral Colloquium at IEEE VIS 2018

Visualization, or the use of interactive graphic representations to support data analysis and understanding, has become integral to a wide array of application areas. This grant provides support for approximately 18 U.S.-based graduate students to participate in the IEEE VIS Doctoral Colloquium to be held in conjunction with the IEEE Visualization Conference (VIS 2018), October 21- 26, 2018, Berlin, Germany (http://ieeevis.org/). IEEE VIS is the premier forum for visualization advances in science and engineering for academia, government, and industry, bringing together researchers and practitioners with a shared interest in techniques, tools, and technology for data analysis. The focus of the VIS Doctoral Colloquium is the students' doctoral dissertation research. Students are selected chiefly on grounds of research excellence, and this research represents the state-of-the-art in the field of visualization. The Doctoral Colloquium provides an opportunity both for these projects to be shaped and improved through intellectual exchange as well as for the students to present and communicate the character of their work to a key group of their peer professionals. Since the students and mentors are a diverse group (nationality, gender, ethnicity, scientific discipline, and research specialization), the students' horizons are broadened at a critical stage in their professional development. Supporting participation of U.S. students in the DC VIS 2018 is important for the development of researchers, practitioners and educators.

IEEE VIS was established in 1996 and has become the worldwide largest and most important conference on Scientific Visualization, Information Visualization and Visual Analytics. The conference trend has been to draw over 1,000 participants from dozens of countries to a week of research presentations, tutorials, workshops, panels, demonstrations, posters, exhibitions and scientific discussions. The Visualization Doctoral Colloquium was initiated in 2006, and has been highly successful in providing mentorship opportunities to current PhD students. Students at the Doctoral Colloquium present their doctoral dissertation research and receive feedback from senior professionals in the visualization community. This event allows the participants to create a professional network both among themselves and with senior researchers. This professional network plays a major role in their professional and educational career development.